Collaborative Research: Short Vectors in Lattices

The main focus of this project is to rebuild the literature on lattice algorithms on a foundation of modern computer architecture. This means going beyond counting textbook operations, and instead investigating the time required on a parallel machine with realistic limits on communication, so as to obtain the ultimate implementation efficiency on current and future chips.

Major project activities include the following: 1. Fast constant-time implementations of fundamental arithmetic operations such as integer multiplication, Euclid's algorithm, and modular inversion. 2. A scalable parallelized implementation of the LLL lattice-basis-reduction algorithm for large-rank lattices. 3. Improvements to algorithms for finding shorter vectors in lattices, including sieving, enumeration, and multiplicative techniques from algebraic number theory.